Varaition of High Temperature Superconducting Properties with Composition and State of Oxidation in BaO-Y2O3-Cu-O System

This project will investigate the quaternary system, BaO-Y2O3-Cu- O, by constructing sections of constant BaO content at different oxygen partial pressures using a simultaneous thermal analyzer and quenching technique. Compatible phases and melting relationships will be determined as a function of temperature and oxygen partial pressure. Measurements of electrical resistivity, critical current, and magnetic susceptibility with temperature will be followed as a function of composition and state of oxidation of copper. In addition, measurements of critical field and heat capacities will be investigated between 1 K and room temperature. Conditions for growing single crystals from melt as well as conditions for synthesis and processing polycrystalline material with the highest possible Tc will be established.